Mathematical Sciences: Conference in Geometric Modeling and Design; Wayne State University, May 6-8, l990

This proposal supports a conference on the topic of Geometric Modeling and Design to be held at Wayne State University in Detroit, MI on May 6-8, 1990. The following areas will be addressed: continuity of parametric surface patches, the emerging role of algebraic geometry in geometric modeling and design, and numerical control machining and toolpath planning. One important aspect of this conference is its effort to bring together industry, especially the auto industry, and academia to collaborate on geometric modeling and design problems of mutual interest.